Human Frontier Science Program (HFSP Fifth Annual Awardees Meeting

An awardees meeting is held each year in conjunction with the spring meetinf of the HFSP Board of Trustees. This meeting affords the research grant awardees and long-term fellows the opportunity to meet and exchange scientific ideas and report on their research. thismeeting also provides the opportunity for this group of international scientists to discuss collaborative activities.